Summer Institute for Precollege Teachers of Hearing Impaired Students

Building upon a currently funded NSF project, this three-year project seeks to address the underrepresentation of deaf persons in mathematics and science by improving the mathematical knowledge and pedagogical skills of pre-college teachers of deaf students. Each summer, fifty teachers from grades K-12 will participate in a six-week summer session that will improve their understanding of mathematics content, enhance their pedagogical knowledge and practice (especially as applied to deaf students), and familiarize them with the use of microcomputers. Participants will be teachers in residential and day schools for the deaf or in self-contained classrooms for the deaf throughout the nation. Follow-up activities include regional conferences and visits to the participants' schools by project staff. Evaluation will include questionnaires and pre- and post-tests of participants' skills and knowledge. Gallaudet University is contributing as cost-sharing an amount equal to 7% of the NSF award.